Kinetics and Mechanisms of Rapid Reactions in Solution

In this accomplishment-based renewal in the Inorganic, Organometallic and Bioinorganic Chemistry Program, Dr. Margerum will continue mechanistic studies of non-metal redox reactions with emphasis on rapid reactions between electrophilic halogen species and nucleophiles with nitrogen, oxygen, sulfur and halogen donors. The role of halogen-cation transfer mechanisms, the correlation of reactivities with nucleophilicity, and the effect of acid-base catalysis in these reactions will be examined. Halogen oxidations of ammonia, hydrazine, and hydroxylamine, the reaction of chloramine with formaldehyde, reactions between bromamine and formaldehyde, reactions of N-fluoro electrophilic fluorinating reagents with inorganic nucleophiles, and reactions of highly reactive Ni(III)peptide complexes will be studied. The use of a pulsed-accelerated-flow, position-resolved observation instrument developed in Margerum's laboratories makes it possible to measure extremely fast reaction rates. In this work Dr. Margerum will study atom- and ion-transfer reactions which take place more rapidly than can be measured by conventional methods. The unique instrumentation developed in the PI's laboratory provides the opportunity to measure these extremely fast reactions, which have fundamental, environmental and biological significance.